Purchase of Computer System

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at Texas A&M University in the purchase of an SGI Power Challenge and Indy workstations. This equipment will enhance research in a number of areas including the following: (1) theoretical and computational chemistry, and (2) solid-state and materials chemistry. A workstation network of fast, modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a `computer network` also serves as a developmental environment for new theoretical codes and algorithms, provides state-of-the-art graphics and visualization facilities and supports research in state-of-the-art applications of parallel processing. f8 Û-ª þ ; + + Ûª▓ ÑOh ª' +'ª▒0 Ý + ] $ H l + ¢ ╗ D h + ++++++++++++++++++++++++++++++++ R:\WWUSER\TEMPLATE\NORMAL.DOT